Study of the Natural Convection of Gases Between Isothermal Concentric Cylinders at Cryogenic Temperatures etc.

This research entails a basic study in natural convection; specifically, attention will be focused on heat transfer in gases between isothermal concentric cylinders maintained at cryogenic temperatures. Of special interest are the validity of the Bousinesq approximation, which is commonly used in natural convection studies, and the effects of fluid property variations.